Support for Young Scientists to Attend Penrose Conference on Evolution of Ocean Island Volcanoes, June 4-12, 1998, Galapagos Islands, Ecuador

9729257 Geist Funds were requested to help subsidize the costs of young scientists (graduate students and early-career professional) to attend the Geological Society of America Penrose Conference on the Evolution of Ocean Island Volcanoes that will take place in the Galapagos Islands, Ecuador, form June 4 to 12, 1998. This meeting is being co-sponsored by the Geological Society of America, the International Association of Volcanology and Chemistry of the Earth's Interior (IAVCEI) and the Charles Darwin Foundation. Funds will be distributed by the three co-convenors of the conference and is their intention to recruit as diverse a group as possible, especially in terms of experience level (the main purpose of this request), areas of interest and specialty, and nationality; this strategy will hold for students as well as academics. Students and professionals will apply for funds by submitting a CV, a short statement of financial need, topical interest in the meeting, qualifications, and title of proposed poster session.